CAREER: Stoichiometry of Ion Channel Phosphoregulation

Cellular electrical activity controls neuronal activity. Multi-subunit
membrane proteins called ion channels are directly responsible for cellular
electrical activity. In addition to ion channels, many other proteins are
composed of multiple subunits. Multi-subunit proteins have evolved to
exhibit regulation by mechanisms that include phosphorylation.
Stoichiometric analysis refers to the study of how the relative number,
composition, and structure of different subunits influences the activity of
a multi-subunit protein. Such analysis has been applied spectacularly to
the study of the oxygen-carrying blood protein hemoglobin. Our
understanding of hemoglobin provides a vivid example for introducing
students to the beautiful intricacies of the relation between protein
structure/function and physiology. In contrast to our deep knowledge of
hemoglobin, relatively little is known about the stoichiometric behavior of
multi-subunit ion channels. Thus, such approaches applied to the study of
ion channels may provide a deeper understanding of how these important
proteins work. An powerful array of molecular and computer-based
bioinformatic tools has been combined here to reveal answers to
evolutionary and physiological questions of how ion channels work. The
thrust of this CAREER proposal emphasizes the unity of biology on many levels,
thus benefitting both classroom and laboratory inquiry. New information
gathered in the laboratory will be carried into the classroom. In turn,
teaching helps inform which questions to ask in the laboratory.